Cornell Mathematics Research Computing Environment

The Cornell Mathematics Department will purchase and install a
multiple processor computer to enable computationally intensive
research within the department. The computer will be available to all
faculty and students in the Mathematics Department engaged in
computational research requiring more than a single processor.

Specific problems described in the proposal will be pursued by
R. Keith Dennis, Gerhard Michler, Mike Stillman, Dan Barbasch,
Alexander Valdimirsky, Rick Durrett and John Guckenheimer. Dennis and
Michler will investigate the structure of finite simple groups. Their
will work will help clarify the classification of finite simple
groups, one of the most complex proofs in mathematics. Durrett will
simulate probabilistic models for genomic and evolutionary
processes. This research will test approximations that significantly
reduce the computational time required to analyze large data
sets. Stillman will investigate algebraic problems arising from the
use of Bayesian networks in the statistical analysis of genomic data.
Barbasch will study irreducible representations of Lie groups, a
subject that finds important applications in quantum mechanics.
Vladimirsky will investigate parallelization of efficient algorithms
for solving of optimal control problems, for example problems to find
the minimum time or cost required for a process. Guckenheimer will
investigate dynamical systems that arise in neuroscience, studies of
locomotion and chemical combustion.